Synthetic and Mechanistic Studies on the Homogeneous Catalysis of Transition Metal Complexes

Stony Brook This research has two foci. First, the development of new carbocyclization reactions will be carried out by probing cascade tricyclizations, by trapping of the intermediates in silylcarbocyclization (SiCaC) reactions and by testing the scope of hetero-SiCaC reactions. Second, a synthetic and mechanistic study of homogeneous catalysis in supercritical carbon dioxide will be carried out. Both higher reaction rates and greater reaction selectivity are to be expected from this approach. With this renewal award, the Synthetic Organic Program and the Office of Multidiciplinary Activities are supporting the research of Dr. Iwao Ojima of the Department of Chemistry at the State University of New York, Stony Brook. Professor Ojima will focus his work on developing new and efficient homogeneous catalytic reactions incorporating carbocyclizations and carbonylations in conjunction with heterobimetallic catalyst systems. The methodology affords synthetic chemists powerful tools for the preparation of a large number of cyclic molecules.